CEDAR: Whole Atmosphere Modeling of the Thermosphere/Ionosphere Responses to Lower-Atmosphere Dynamics and Variability

The Whole Atmosphere Community Climate Model (WACCM) is improved by extension of the upper boundary to 550 km, and by adaptation (from other models) of physical algorithms for thermosphere-ionosphere energetic, dynamic, and composition interactions. New parameterizations characterizing gravity-wave forcing and tidal coupling are also established in the new model, completing a comprehensive whole-atmosphere modeling approach. The resultant model, including source code, is made available to the entire community with application support from the National Center for Atmospheric Research. Model validation is accomplished by model and data comparisons performed by the research team, and by collaboration with independent outside investigators. Particular emphasis is placed on evaluating upper atmospheric response to secular changes in trace species, temperature, and dynamics in the lower atmosphere in the context of global climate change.